Conference Support of BETECH 92; Albuquerque, NM; May 1992

The sixth Intentional Conference on Boundary Element Technology (BETECH 92) will be held at the University of New Mexico, May 27-29, 1992. Recent theoretical and computational developments have transformed the BEM from a purely research technique into an efficient tool for engineering design. The Conference will provide an international forum for boundary element researchers, code developers, and industrial users. The proceedings of the conference will provide an important reference in the applications of boundary element method.